Secondary Science Teaching in Rural Michigan: A Model Program for Teacher Retention and Renewal

This proposal envisions a model partner-based system that provides lead teachers both school-based workshops and a summer institute for science content. The model has three components: a science pedagogy part provided by science education faculty, a science content component provided by active research scientists and a classroom teaching component.

The specific goals are to deepen teachers understanding of content, scientific inquiry and pedagogy, including curriculum and assessment strategies; to develop a group of sixty teacher leaders and to provide teachers access to effective applications of educational technology.